Mathematical Sciences: Geometric Methods in Population Dynamics: Stability, Coexistence, Exclusion in Competitive Lotka-Volterra Systems

9404621 Zeeman The research covers aspects of dynamical systems theory applied to population models of Lotka-Volterra type. These models occur in behavioral sciences and ecology. The scope entails further analysis of their geometric and convexity properties relevant to the dynamics. The research has potential applications to the field of ecological rates of change. ***